Postdoctoral Fellowship: MSPRF: Stochastic Partial Differential Equations Arising from Random Walk Models in Random Media

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Shalin Parekh is “Stochastic Partial Differential Equations Arising from Random Walk Models in Random Media”. The host institution for the fellowship is the University of Maryland and the sponsoring scientist is Yu Gu.